Radio Astronomy Observations and Instrumentation Development at the Haystack Observatory

This award provides a share of "seed money" from the National Science Foundation, for the exploration and development of a technique to increase the sensitivity of the VLBA recorders by a factor of two. This project is also being supported by other agencies in complementary fashion.